Rapid Isolation of Plant Hypersensitive Response Genes Usinga Viral Expression Vector

One form of resistance that plants employ against viral disease is the development of necrosis at the site of initial infection. This hypersensitive response (HR) limits the virus to the infection site and prevents it from spreading throughout the plant. Although many of the metabolic changes associated with HR are known, the nature and function of the genes that control the response remain a mystery. A novel strategy for the isolation of host genes that control a HR against tobacco mosaic virus (TMV) has been conceived. A full-length, infectious cDNA clone of TMV has been modified to permit the introduction of foreign open reading frames in place of the viral coat protein gene. Foreign genes inserted into this viral vector are expressed in planta with protein levels ranging from approximately 0.1% to 1% of the total extractable protein. The isolation of HR-specific genes using the TMV-based expression vector will involve the "shotgun" cloning of pooled cDNAs derived from HR-positive host plants into the universal cloning sites of the vector. In vitro transcription reactions will be performed, and the transcribed RNAs will be inoculated directly onto appropriate host plants that lack the HR- controlling genes ("systemic hosts"). The inoculated leaves will be monitored for the appearance of necrotic infection sites or other evidence of HR. Individual viruses eliciting a HR will be propagated and viral RNA will be extracted. The segment of the viral RNA representing the cDNA inserted into the cloning site of the TMV vector will be amplified by PCR techniques using primers that flank the inserted gene. The genes will be sequenced and will be used as probes for the analysis of RNA expression in plant tissues before and during viral infection. Antibody preparations generated in rabbits immunized with proteins produced in E. coli will also allow the analysis of protein expression patterns. %%% The successful development of this technique would allow very important plant resistance genes to be cloned and characterized after many failures to do so by other productive research workers.